Purchase of X-Ray Diffractometer with CCD Based Detector

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Cornell University to acquire a Siemen's SMART X-ray diffractometer equipped with a CCD detector.This equipment will enhance research in a number of areas including the following: (1) natural products, (2) novel solid state compounds, (3) X-ray crystallographic studies of purine and pyrimidine nucleoside analogs, (4) application of X-ray crystallographic to chemical ecology, (5) biologically-inspired advanced materials, and (6) metal organic chemistry. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.